Mathematical Sciences: Travel Support for U.S. Mathematicians attending the International Congress of Mathematicians, Zurich, Switzerland, August 1994

9319874 Bradley This project will support a travel grant program for the 1994 International Congress of Mathematicians to be held in August 1994 in Zurich, Switzerland. The Congress, which is held every four years, is a meeting of mathematicians from all over the world. The American Mathematical Society will administer the program, which will culminate in the selection of a group of mathematicians from the United States who will receive awards providing partial support for their travel to this meeting. ***